Academic Research Infrastructure: The Purchase of a Scalable Parallel Computer to Complete the High End Computing Infrastructure

9601580 Loh, Eugene C. DeTar, Carleton University of Utah Academic Research Infrastructure: The Purchase of a Scaleable Parallel Computer to Complete the High End Computing Infrastructure This Academic Research Infrastructure award supports the acquisition of a high speed SMD computing systems operating at a peak speed of approximately 15 GFLops. The research projects supported by the equipment include: 1. Astrophysics research in simulation of cosmic ray cascades. 2. Numerical simulations of strong nuclear interactions. 3. Molecular structure simulations. 4. Quantum chemistry. 5. Applied seismology. 6. Advanced materials including nanostructures and electronic properties of solids. 7. Atmospheric physics.